Using Animated Contrasting Cases to Improve Procedural and Conceptual Knowledge in Geometry

This project aims to support stronger student outcomes in the teaching and learning of geometry in the middle grades through engaging students in animated contrasting cases of worked examples. Animated contrasting cases are a set of two worked examples for the same geometry problem, approached in different ways. The animations show the visual moves and annotations students would make in solving the problems. Students are asked to compare and discuss the approaches. This theoretically-grounded approach extends the work of cognitive scientists and mathematics educators who have shown this approach supports strong student learning in algebra. The project will design a series of animated geometry curricular materials on a digital platform that ask students to compare different approaches to solving the same geometry problem. The study will measure changes in students' procedural and conceptual knowledge of geometry after engaging with the materials and will explore the ways in which teachers implement the materials in their classrooms. This work is particularly important as geometry is an understudied area in mathematics education, and national and international assessments at the middle school level consistently identify geometry as a mathematics content area in which students score the lowest.

This project draws on prior work that documents the impact of comparison on students' learning in algebra. Providing students with opportunities to compare multiple strategies is recommended by a range of mathematics policy documents, as research has shown this approach promotes flexibility and enhances conceptual knowledge and procedural fluency. More specifically, the approach allows students to compare the effectiveness and efficiency of mathematical arguments in the context of problem solving. An initial pilot study on non-animated contrasting cases in geometry shows promise for the general approach and suggests that animating the cases has the potential for stronger student learning gains. This study will examine the extent to which the animated cases improve students' conceptual and procedural knowledge of geometry and identify factors that relate to changes in knowledge. The project team will develop 24 worked example contrasting cases based on design principles from the prior work in algebra. The materials will be implemented in four treatment classrooms in the first cycle, revised, and then implemented in eight treatment classrooms. Students' written work will be collected along with data on the nature of the classroom discussions and small-group interviews with students. Teachers' perspectives on lessons will also be collected to support revision and strengthening of the materials. Assessments of students' geometry knowledge will be developed using measures with demonstrated validity and reliability to measure changes in student learning.

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.